MRI: Acquisition of a Shared Parallel High Performance Storage System to Enable Computational Science and Engineering

Proposal #: 12-29573
PI(s): Hillegas, Curtis W.
Carter, Emily A.; Pretorius, Frans; Spitkovsky, Anatoly; Wood, Eric F.
Institution: Princeton University
Title: MRI/Acq.: Shared Parallel High Performance Storage System to Enable Computational Science and Engineering
Project Proposed:
This project, acquiring a High Performance Computing (HPC) storage system, aims to provide storage and I/O bandwidth required to enable advancement of research to new, previously unattainable areas. Specifically, in astrophysics the storage will allow an increase in dimensionality to perform full 3D modeling of shock formation; in civil and environmental engineering, it will enable the analysis of higher resolution water condition data in both time and space; in mechanical and aerospace engineering, the instrument will facilitate rigorous physical modeling of rate constants for biofuel combustion and fundamental understanding of molecular adsorptions; and in physics it will enable the modeling of gravitational waves and compact object mergers considering a broader range of physics. More generally, the system will enable projects across many disciplines in computational science and engineering.
Since data storage and access have become a bottleneck hampering researchers in the TIGRESS systems, the proposed system should contribute to remove the bottleneck. Understanding that data growth will continue, a modular storage system design has been chosen that will allow the system to grow in capacity and performance as the data deluge continuous to mount. Planned is the purchase of a 1.5 PB storage system based on hardware from NetApp, integrated with servers from SGI by Comnetco. The system will run IBMs General Parallel File System (GPFS) and provide 12 GB/s parallel performance across the institution’s TIGRESS HPC systems.
Broader Impacts:
The instrument will facilitate collaboration by making it easy for researchers to share data within the institution; furthermore, it will foster collaboration nationally and internationally through the included web server facility by allowing researchers to broadly share their data. As a research tool available to postdocs, graduate students, and advanced undergraduate students, including many researchers underrepresented minority groups, the instrument will serve as a training platform, teaching data layout, management and performance optimization.